Mathematical Sciences: Mathematical Studies of Stability and Transitions

This research will involve collaboration between Prof. J. T. Stuart of Imperial College, London and Applied Mathematicians at Brown University. The work will focus on a mathematical study of stability and transition in fluid flows. Problems to be examined include turbulent slugs and turbulent-laminar interfaces in the flow of a fluid in a pipe or channel. The vortex breakdown problem will also be investigated. The visit by Prof. Stuart should enhance interaction between U.S. and English Applied Mathematicians. The research should enhance our understanding of the transition process from laminar to turbulent flows. Transition is an important issue in many practical contexts in aerodynamics and other applied areas.